Spectra and Hydrodynamics of Herbig-Haro Objects and Jets from Young Stars

The Principal Investigator will be studying, along with a postdoc, Herbig-Haro objects and their jets. Herbig-Haro objects are regions excited by shocks from highly collimated jets that emanate from young stars or star-forming condensations. Most of these objects emit radiation by the recombination of matter that has become ionized by the shocks. The goal of the proposed research is to understand the physics of Herbig-Haro objects by comparing observations in the infrared, visible, and ultraviolet wavelength ranges with hydrodynamic radiation models.